Dissertation Research: Tribal Segmentation and Intrasite Spatial Variability of Jiangzhai, China

One of the least known regions and time periods is the Neolithic period in northern China. In order to help remedy this situation, the student during the course of this project will analyze data from the recently excavated site of Jiangzhai which dates to the Yangshao period (ca. 6300 b.p.). The student will analyze the spatial organization of Jiangzhai in order to understand the social organization of the village. He will test a hypothesis that the village was organized around a segmentary system thereby increasing knowledge about prehistoric societies and the way they were organized. Specifically, this research project will provide new information on the organization of early neolithic communities in China. Significantly, the student has the support of Chinese archaeologists. This means that he will have the opportunity to open a vast new geographical area to U.S. archaeologists and at the same time increase international cooperation and collaboration.